Implementing the Learning Cycle Approach to Instruction in High Schools: Teacher Development and Materials Development

This project will bring about changes in instructional practices in secondary science classrooms in the area surrounding Utah State University. Teachers will be supplied with materials and taught the techniques necessary to implement the Learning Cycle approach to instruction. The program will include three phases. Phase I will consist of the preparation of appropriate teaching materials and will be conducted during the 1985-86 academic year. Phase II will be a three-week summer session, for 30 participants who will receive instruction in cognitive psychology with emphasis on the Learning Cycle Model. Activities during the following academic year will apply the principals and activities in the classroom environment. Videotaping will allow the participants and staff to document changes which occur in the classroom. Phase III will consist of a summer workshop for ten of the participants, to revise the previous program. During the following academic year, the revised programs will be used in the classroom and reevaluated.